The Emission Line Regions of Active Nuclei and Classical Novae

Numerical simulation of the physical conditions in gas exposed to ionizing radiation will be carried out. The results will be applied to several current problems in understanding the spectra of active galactic nuclei and novae. The improvements to the photoionization code named "CLOUDY" will largely be in the following categories: a) the improvement in the atomic data base will be continued; b) the treatment of physical processes will continue to be enhanced and made more complete; and c) the line transfer methods and assumptions will be improved. These continued enhancements to the of validity of the calculations are important since "CLOUDY" has been employed by a wide community of users to study a variety of physical situations; a) the broad line region of active nuclei, where an alternative model of emitting gas will be investigated; b) the extended x-ray emitting gas in the Seyfert galaxy NGC 4151, a region which may be an example of Compton heated wind; and c) the nebula around the old nova DQ Hercules, unique because of the very low temperature (approximately 500k) and moderate level of ionization. Such confrontation between theory and observation is an important ingredient in the continued development of numerical simulations of ionized gas.